Designing Dual Licensure Programs for STEM Majors

This Capacity Building project is laying the foundation for the creation of four specialized dual licensure programs to help meet the needs of rural and high-needs school districts for qualified secondary school teachers with one of four pairs of high demand specialties: mathematics and physics, life sciences and chemistry, mathematics and teaching of English as a Second Language (TESL), and life sciences and TESL. The PIs are coordinating a team of five content and education faculty, science and mathematics representatives from community college partners, and colleagues from high-needs school districts, to work together to design the new licensure programs, prepare institutional and state approval applications, and establish articulation agreements. Primary expected outcomes include: 1) the establishment of strong partnerships between the PI's institution, three two-year institutions, a regional service cooperative, and a number of local high need school districts; 2) the development and piloting of a targeted recruitment plan to engage STEM majors in considering a career in teaching, and 3) the design of mentoring, administration, and evaluation plans to support full-fledged implementation.